Seminar on Stochastic Processes

9708986 Cinlar This award provides funds to partially support the 1997 Seminar on Stochastic Processes. The seminars have become one of the most important regular seminar series for probabilists in the USA. They attract and bring together an active group of eminent researchers and young specialists in probability and stochastic processes. The emphasis areas this year will be stochastic calculus, stochastic partial differential equations, and numerical methods for them. The primary aim is to provide an overview of significant lines of research and to enable participants to discuss their work in an informal atmosphere.